Socioecology and Conservation of a Highly Endangered African Primate, the Sanje Mangabey: Exploratory Investigation and Assessment of Feasibility for Study

Carol Ehrhardt SBR- 9317814 This exploratory investigation is a feasibility study of a highly endangered monkey species, the Sanje mangabey. This is one of two rare species restricted to the Uzungwa Mountains of southeastern Tanzania. The objectives are to a) set up transect lines for survey purposes, b) locate study groups, c) assess the possibilities of habituation, d) experiment with various observational methods, e) collect data on morphology, vocalizations, social structure, and feeding ecology, f) record vocalizations, and g) establish ties with Tanzanian officials, researchers, and students. ***